Shared Funding for the Gordon Research Conference on Industrial Ecology

9727663 Graedel The PI proposes Shared Funding for the Gordon Research Conference on Industrial Ecology. Industrial ecology is an emerging field focused on the environment which takes a systems view of industrial activity and its external interactions. It takes selected approaches of biological ecology (resource cycling, energy flows, food webs, etc.) and uses them to study such topics as materials and energy cycling in industry. The goal is to decrease impacts on the natural environment and to increase the sustainability and efficiency of energy and materials use. It takes system-wide views and is clearly multidisciplinary, involving (among others) chemical engineers, industrial engineers, manufacturing engineers, physicists, chemists, materials scientists, and operations researchers. Any emerging field lacks many of the traditional mechanisms for the production and communication of research, particularly periodic, broadly structured conferences at which the most recent and exciting research can be shared and discussed. To begin to fill this gap, the Principal Investigator submitted a proposal for a Gordon Research Conference on Industrial Ecology. That proposal was accepted, and the first such conference will be held in the summer of 1998. ***